Development of a Seismometer Calibration and Test Facility

This project will enhance a facility for calibration and testing of seismometers. Specifically, the project will upgrade two existing, observatory-class shake tables with new electronics and interferometric optical displacement sensors. The facility will be made available to all qualified researchers in the academic, government, and commercial sectors, and will be a invaluable community resource.